A Power Plant Simulator in Parallel Processing Environment

9360292 Jain A power plant simulator is designed using parallel computing architecture. This new generation simulator integrates an innovative tech technique for distributed computing. Traditional simulators require excessive computing resources implemented in uniprocessing environments at low computing speeds. In this project plant models are created for implementation in parallel processing architecture, and generating associated algorithms and hardware architecture for parallel processing. The new generation simulator, in addition to plant design analysis and personnel training, is useful for many other applications, such as configuring and evaluating procedures for plant operations under transient conditions. ***